Conferences on Formal Power Series and Algebraic Combinatorics 2013-2014

This award will provide support for US participants, especially women, graduate students, postdocs, and junior faculty, to attend the twenty-fifth and twenty-sixth international conferences in Formal Power Series and Algebraic Combinatorics (FPSAC), to be held in Paris (2013) and Chicago (2014). The most important annual conference series in algebraic combinatorics in the world, FPSAC offers young American researchers a unique opportunity to interact closely with top mathematicians from many countries. Somewhat interdisciplinary, the conferences link research in combinatorics to other topics in pure mathematics such as algebraic geometry, commutative algebra, representation theory, K-theory and symplectic geometry, and to topics in other sciences such as computer science, physics, and biology.